Presidential Young Investigator Award - Analytical Modeling of Structures and Applications in Earthquake Engineering

This project is supported under the Presidential Young Investigator (PYI) Award program. The project is initiated in FY 90 for a 5-year period. The objectives of the project is to develop analytical modeling techniques for vibrating systems and apply them in earthquake engineering. The development of analytical models that accurately represent structural behavior plays a crucial role in dynamic response prediction. Many analytical procedures are rendered ineffective if the finite element model and computational technique used in implementing the procedure involve inaccuracies due to improper respresentation of the vibrating system. The research will focus on the development of finite element models used to implement dynamic analyses of structural systems. These models must accurately represent all structural attributes such as stiffness and mass properties, boundary conditions, joint fixities, and material and geometric nonlinearities. Several tasks have been identified as part of an overall research program: 1) development of a high-resolution finite element model of an existing structure which will represent structural characteristics with minimal approximation, 2) development of a conventional finite element model of the same structe which contains typical modeling assumptions, 3) studies involving the two models which evaluate the validity of the assumptions in the conventional model when compared to the high-resolution model, and 4) development of new techniques which will minimize the inaccuracies associated with the modeling associated with the modeling assumptions. This research will be implemented on structures undergoing seismic excitation. This research will benefit industry by verifying and quantifying assumptions used in modeling vibrating systems and will enhance dynamic analysis technology by developing techniques which minimize modeling inaccuracies.